Convergence Accelerator Phase I: Accelerating the Bioeconomy: Transformation of Engineering Biology through Public Biofoundries

The workshop will bring together key stakeholder from academia, industry and government with the charge of identifying the best ways to leverage public biofoundries to accelerate engineering biology, towards applications in biomanufacturing and other means to accelerate the bioeconomy and technology translation.

The road to achieving a bio-based economy is transitioning from a concept to a tangible reality and it is acknowledged that public bio-foundries would have a role in enabling the technology that would drive such an economy. This proposal describes activities that are timely for the rapid acceleration of the commercialization of biotechnology.

The end result of the workshop should be a report summarizing the workshop proceedings along with a set of recommendations for future coordination and collaboration between investigators and public biofoundries.